Collaborative Research: Observing and Modeling Downslope-windstorm-type Flow in a Small-scale Crater Induced by Larger-scale Katabatic Winds

This effort will investigate downslope windstorm-type flows (DWF) that have important societal effects and are poorly understood scientifically. The program includes a one-month field program at Arizona's Barringer Meteorite Crater and simulations with a Large-Eddy-Simulation (LES) model. A serendipitous discovery in a prior NSF-funded research program identified this location as being ideally suited for such a study, as DWFs develop there regularly when thermally driven drainage flows cascade over the crater's rim on clear, undisturbed nights. The crater's rim and environs are on a scale that can be readily instrumented to investigate these flows and the changing upstream conditions that cause them to form. DWFs are produced intermittently on the upwind inner sidewall of the small, circular crater basin as pulsations occur in the temperature and wind profiles of the approaching flow. This effort will thus support a systematic investigation of DWFs at a location where many replications can be expected over a comparatively short period.

An associated field effort during Autumn 2013 will collect data uniquely suited to support analyses to answer extant scientific questions about atmospheric DWFs produced by density-stratified flow over topography. Detailed sampling of atmospheric boundary layer conditions by multiple LiDAR (Light Detection And Ranging) and SoDAR (SOnic Detection And Ranging) platforms, tethered balloon sounding systems, as well as infrared time-lapse cameras and surface-based meteorological instrumentation, will be utilized. The overarching goal of the coordinated field research, analysis, and large-eddy simulation (LES) modeling to be conducted by this collaborative team is to determine the characteristic atmospheric structure and evolution associated with the DWFs, identify controlling parameters in the katabatic winds that drive DWFs and, through the modeling studies, extend the findings to basins and ridges of different size and shape to gain a more general understanding of DWFs. The intellectual merit of this research rests in application of novel and innovative concepts that will culminate in more comprehensive analyses and modeling informed by field experience, a short climatology, and initial analyses and simulations. These efforts will advance understanding of the physical processes that affect atmospheric DWF development in complex terrain, and are expected to lead to improvements in models and understanding of this ubiquitous phenomenon, which occurs in mountainous regions throughout the world.

Broader Impacts of this effort will include support of undergraduate and graduate student training, development of modules for classroom teaching, and early-career development of a postdoctoral researcher. Potential benefits to society will accrue through improved understanding of atmospheric DWFs with potential applications for forecasting of downslope windstorms, air pollution dispersion, general and fire weather forecasting, and climate. Results will be widely disseminated through peer-reviewed scientific publications, presentations at scientific meetings, and related websites.